Computational Statistical Methods for High Dimensional Statistical Inference

Computational Statistics is emerging as an important area in its own right, focussing on the development of statistical methodology which could not exist outside of the framework of modern computing resources. This research activity will focus on three principal areas which include the visualization of high dimensional structures, modern nonparametric statistical inference methods for high dimensional data and computational algorithms related to these methods. Specifically: Three dimensional Andrews and related plots; The grand tour in three dimensions; Data set mapping; Finding structure in k-dimensions using grand tour and parallel coordinates; Nonparametric density estimation in high inference using ridge estimation in hyperspace; and Computational algorithms for generalized nonparametric function estimation.